Research Experiences for Undergraduates in Chemistry at Syracuse University

This Research Experiences for Undergraduates (REU) Site project is in the area of materials chemistry. For three summers beginning in 1992, 16 undergraduate students will spend 10 weeks engaged in materials chemistry research, under the direction of 11 senior faculty members from both Syracuse University and SUNY at Potsdam. Four very closely related areas of chemical research in materials science will be investigated. The first aspect involves the design, synthesis and characterization of new organometallic compounds with enhanced properties for use in thin-film depositional techniques such as organometallic vapor phase epitaxial (OMVPE) and molecular beam epitaxial (MBE) processes. The second aspect is the preparation and characterization of new materials from the organometallic precursor compounds described above. The third aspect involves the study of the physico-chemical properties of these new materials. The final aspect deals with the chemical applications of these new materials to a variety of problems.